Computer Science, Engineering Technology and Mathematics Scholarship Program

Scholarships are offered to low-income, academically talented students to promote full-time enrollment and degree achievement in computer science, engineering technology or mathematics. Preference is given to eligible students who enter college for the first time, and then to those eligible students who will complete degree requirements within the time frame of the grant. We retain our students to degree achievement by supporting students through critical periods. Support programs are in place through the Office of Multi-Cultural Affairs, orientation and advising programs, and mentoring of students in the first math and physics courses. Strong industrial partnerships aid the scholars through their critical period of being employable before the degree is complete through workshops, and co-op and intern programs.